Probing Fundamental Physics with Gravitational Experiments

Physics currently has two theories that describe the fundamental physics of the universe: the Standard Model, which describes all matter and the things we can see and touch, using a quantum-mechanical model, and General Relativity, which describes gravity using properties of space and time. While the universe evolved from a common root, there is to date no more unifying concept that connects these two models, meaning that these two theories remain incomplete and separate. Furthermore, the unexplained observational discoveries of dark matter and dark energy suggest that there are gravitational phenomena that exist outside the scope of General Relativity. The group at the University of Washington specializes in testing gravity with unprecedented precision, with the aim of discovering corrections to General Relativity that will then pave the way to a more unified picture of fundamental physics. While observing any deviations from General Relativity would be a revolutionary scientific discovery, the group’s technical innovations and expertise have applications ranging from novel inertial navigation, industrial metrology, and earthquake prediction to preparing the country’s STEM workforce and maintaining domestic manufacturing expertise.

Modern ideas for unifying gravity and particle physics, as well as the observation of dark energy and dark matter, suggest that some aspects of gravity remain undiscovered. The table-top experiments of the University of Washington gravity laboratory (Eöt-Wash Group) provide a unique opportunity to search for new physics at the intersection of General Relativity, cosmology, and particle physics. The group is a leader in the ﬁeld of ultra-weak force detection through technical expertise and innovation while responding to the most relevant, timely, and timeless physics questions. Specifically, the group will: 1) Test the equivalence principle (EP): It is almost certain that any connection between General Relativity and the Standard Model violates the EP. The group’s torsion balances provided the most precise laboratory EP-tests. 2) Test Newton's Inverse-Square Law (ISL) at short distances: The group will use its expertise in measuring gravity at short distances to build a new instrument and carry out measurements to test gravity at distances as short as 20 µm. 3) Advance the frontier of low-frequency ultra-small-force technology: Continually pushing the frontier of technology development has enabled the group’s success. The group will further improve angle measurement and develop interferometric distance gauges.